The Physics of Dark Energy

A program of research in theoretical physics will bring
together particle physics, gravitation, and cosmology to
focus on the physics of ``dark energy'' --- what is now
known, from numerous observations and experiments, to be
the dominant form of energy in the Universe. The work will
develop theoretical models and develop tests which can be
used to reveal the properties of the dark energy. The dark
energy exemplifies the synergistic relationship between
fundamental theory and cosmology. Discovery of the nature
of the dark energy will have a basic impact on many
branches of physics.